Interface Electronic Properties and Growth Parameters of Heterovalent Semiconductor Heterojunctions

9711851 Brillson This project seeks to advance understanding of ZnSe/GaAs, GaAs/GeSi, and GaN/Al2O3 interfaces and growth processes with emphasis on control of interface band alignment and deep levels. A comprehensive plan is presented for optimizing heterovalent heterojunction interface electronic properties, including both interfacial band discontinuities and chemical stability against defect formation and thermal degradation. The combination of molecular beam epitaxial growth, low energy cathodoluminescence and photoluminescence spectroscopies of buried interfaces, surface-sensitive x-ray and soft x-ray photoemission spectroscopies, and optical trap spectroscopies of subsurfaces will be employed to optimize growth processes for both improved electrical properties and chemical stability. It is expected to link interface chemical and electronic features with the atomic movements leading to deep level and dipole formation. Use of altered overlayer, substrate stoichiometries, and epitaxial interlayers will be assessed spectroscopically to develop general growth principles for optimizing heterojunction interface properties. %%% The project addresses basic research issues in a topical area of materials science having high technological relevance. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic devices. Additionally, the fundamental knowledge and understanding gained from the research is expected to contribute to improving the performance and stability of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***